US-UK Collab: Transmission and coevolutionary dynamics drive the evolution of generalist and specialist viruses

Jack-of-all-trades or master of one? Viruses show tremendous diversity in their ability to infect different types of organisms including animals, plants and bacteria. Some viruses are able to infect multiple host species while others can only infect one. A major unresolved problem facing both the scientific community and medical professionals is why do some viruses evolve to be specialists while others are generalists? To answer this question, it is vital to understand the complexities underpinning the interactions between hosts and their viruses. As viruses and their hosts co-evolve, hosts develop resistance, and viruses in turn find ways of overcoming host defenses. Whether the virus can successfully co-evolve with its host also depends on the structure of the environment and how the viruses are transmitted between hosts. This research will embrace the complexity of virus and host interactions - from genes to cells to populations to the community. A laboratory system consisting of a bacteria (Escherichia coli) and its viruses will be used to gain understanding of the evolution of naturally occurring viruses and their hosts. The experiments will be combined with an innovative mathematical modeling framework designed to bridge the gap between laboratory and nature. The results of this work will provide critical insights into what dictates the diversity of viral strategies - a key step towards a comprehensive theory of the ecology and evolution of infectious diseases. This will further a general understanding of the dynamics of disease in natural systems and help to improve public health initiatives. The project will strengthen collaborations between US and UK scientists and train undergraduate and graduate students in research.